RIA: The Effect of Interface Diffusion and Slip on the Creep Resistance of Fiber and Particulate Composite Materials

The research to be performed on this RIA award will evaluate the effect on the matrix constraint - and thus on creep resistance - of diffusional relaxation and interface slip along the matrix- reinforcement interface of intermetallic matrix composites. Unit cell models will be used and solved by the finite element method. AS coupled analysis of slip and diffusion, along with fiber cracking, will also be performed to investigate the net effect of the reinforcement size.//